Expanding Linkages Between Under-Represented Minorities and Careers in Aquatic Sciences

This is a renewal award to support Hampton University to continue a program, in cooperation with the American Society of Limnology and Oceanography (ASLO), to increase the numbers of underrepresented minorities electing careers in aquatic sciences and becoming involved in ASLO activities. The program is targeted at minority students, faculty, and professionals with interest in aquatic sciences as well as at majority faculty working at Historically Minority Colleges and Universities (HMCUs). The proposed activities include: free membership in ASLO and support to attend annual meetings for three years; pre-meeting workshop to prepare attendees for active participation in the meeting; and special sessions during the meetings for HMCU representatives to make presentations. The combined efforts of an HMCU and a professional society should provide an effective mechanism to attract minority students and get them actively interested and involved in scientific research and in professional society activities.